NSF Young Investigator

9458055 Teraoka Enhanced partitioning fractionation of polydisperse polymers using porous materials recently proposed by the nominee is expected to have a high preparative capability. He will study solution thermodynamics in the fractionation as well as statics and dynamics of polymer chains in a confining porous medium. %%% ***